Scaling Project-Based, Authentic Research and Knowledge in Life Science Innovation

This project aims to serve the national interest by expanding access to project-based, transdisciplinary learning experiences that help undergraduate students apply life science knowledge to complex, real-world challenges. The project will scale the evidence-based Life Science Innovation (LSI) course, a project-based course where student teams analyze authentic scientific innovations and develop strategies for advancing them toward practical application. Working with active intellectual property, students synthesize biological science with concepts from intellectual property, technology transfer, regulatory affairs, market analysis, financing, and entrepreneurship. The project will support faculty development through immersive workshops, ongoing mentoring, and a Community of Practice, enabling instructors to implement and sustain the curriculum at their home institutions. By increasing institutional capacity to offer project-based, entrepreneurial learning experiences, the project will broaden student access to educational experiences that reflect how scientific innovations move from discovery toward societal impact. This Level 1 Engaged Student Learning project is expected to strengthen student engagement, critical thinking, communication, collaboration, and evidence-based decision-making while preparing students for diverse STEM career pathways. Instructional resources developed through the project will be disseminated as open-access materials for adaptation by other institutions.

The project will investigate how faculty development and structured implementation supports influence the adoption and effectiveness of project-based, transdisciplinary learning in undergraduate life science education. Faculty participants will attend a summer workshop introducing translational science, entrepreneurship, project-based pedagogy, and curricular resources, followed by participation in a Community of Practice that provides ongoing support for course implementation. Student teams enrolled in the Life Science Innovation course will work with authentic intellectual property and scientific innovations, interact with scientists and industry experts, evaluate scientific evidence, develop value propositions, analyze regulatory and market considerations, and create investor-style presentations. The project will employ a mixed-methods evaluation to examine faculty self-efficacy, instructional practices, and implementation experiences, as well as student learning gains, science identity, entrepreneurial knowledge, and career readiness. Assessment will include validated instruments, surveys, focus groups, and analysis of course artifacts. By integrating evidence across multiple institutional contexts, the project will advance understanding of how entrepreneurial and scientific learning can be effectively integrated in undergraduate STEM education and provide a scalable model for broad adoption across life science programs. The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.